Theory and Applications of Finite-Dimensional Nonlinear Control

9803411
Sussmann

Research will be carried out on nonlinear control theory, continuing the
principal investigator's previous work in this area on a broad class of
theoretical and applied control theory problems. The methods used will be
those of differential-geometric control theory, nonsmooth analysis, and the
theory of real analytic maps and their associated stratifications.
Specifically, efforts will be made to solve a number of open problems in
the areas of optimal control, controllability, and realization theory, while
pursuing the development of the necessary mathematical tools. In
particular, work will continue on a major project that began in 1992, and
has evolved since then and has led to a strong, general, unified version of
the necessary conditions for optimality usually known as the ``Pontryagin
Maximum Principle.'' This new version of the Maximum Principle
requires the use of a new theory of generalized differentials, called
``multidifferentials,'' and part of the work will involve the systematic
development of this theory and its applications.

Recent developments in nonlinear control have led to many applications to
various issues in robotics and nonholonomic motion planning. The
general question here is that of finding a path for a given system that takes
it from a given state to another desired state, satisfying some constraints or
optimizing some cost functional. (For example, steer a vehicle from a
given position to another desired position while avoiding certain obstacles,
possibly with the extra requirement that this be done in minimum time or
with minimum expenditure of energy.) Thanks to the extraordinary recent
advances in computing power, it has now become realistic to expect to
solve many of these problems in real time, and we intend to develop
methods that will contribute to this endeavor, by providing an a priori
understanding of the structure of the solutions, so as to reduce the search
needed to find it. A special effort will be made to improve communication
between specialists in the field of nonlinear control and the general
mathematical and engineering community, by bringing to the attention of
the community examples of applications that show the advantages and the
power of the techniques of nonlinear control.